International Meeting on the Matrix of Biological Information -- July 1990

To facilitate the exchange of ideas among workers interested in computer applications in biology, an international meeting will be held from 8-11 July 1990, at George Mason University. The meeting will involve computer workshops, poster sessions, and plenary sessions with invited talks. The plenary sessions will treat the following specific areas: - The BioMATRIX Concept - Phylogeny and Systematics - Enabling Technologies for BioInformatics - Artificial Intelligence and Philosophical Foundations - Directories and Data Integration Projects - BioMATRIX of the Biosequences - Modeling and Simulation - Electronic Facilities for Scientific Communication The meeting will also involve organizational sessions that will, among other things, explore the formation of a BioMATRIX society to provide a vehicle for further scientific exchange.